Generalized Linear Dynamical Systems Over Commutative Rings

This project focuses on generalized linear dynamical systems over commutative rings. A realization theory of neutral systems (systems where delays appear in the derivative of the state as well as in the state and/or input-output) is being developed in the context of generalized systems over rings. The concept of an 'absolutely irreducible' realization has been introduced. This concept guarantees that an absolutely irreducible realization of a generic bounded-input-bounded-output stable transfer function is internally stable. In addition, a constructive procedure has been given for computing such realizations.